Number Theory and Combinatorics

Project Summary for George Andrews

The first topic covered in this propsoal is Partitions and
Probability. Here it is proposed to ground the study begun by
Holroyd, Liggett, and Romik in the theory of partitions with
the hope of getting (1) better asymptotics, (2) broader
applications, and (3) further connections with Ramanujan's
mock theta functions. The second topic, Entire Functions
and the Rogers-Ramanujan Identities, examines the further
implications that arise from two truly amazing formulas
that lay buried in Ramanujan's Lost Notebook. The third
topic, Engel Transformations, builds upon some
of the original amazing expansion theorems due to A. and
J. Knopfmacher. This algorithm should be useful in any
mathematical subject (including statistical mechanics)
where q-series expansions play a substantial role. The
fourth topic, The Okada Conjecture, is one that has been open
for many years. Recently in joint work with Paule and Schneider,
the PI gave a new proof of the q = 1 case of this conjecture.
This new proof clearly suggests that one should be able to
extend it to general q. The fifth topic, Ramanujan and
Partial Fractions, was suggested by prior attempts to better
understand some of the more recondite formulas in Ramanujan's
Lost Notebook. Great progress has been made in improving
previous work; it is hoped that these methods may be further developed
to elucidate a general theory of mock theta functions. Section
6, the final section, concerns the intersection of the PI's research
with his efforts to improve teacher education. Put succinctly,
it is clear that the theory of compositions (ordered partitions)
could play a much more substantial role in primary and
secondary education.

This project is devoted to problems in partitions and q-series,
especially ones that simultaneously (1) advance the central
theory of this branch of mathematics and (2) have substantial
potential for application in other branches of mathematics and
mathematical sciences. The section on partitions and probability
especially epitomizes this philosophy. Applications of this
topic have already been made to cellular automata. The work
on Engel Transformations studies an algorithm wherein there are
potential applications to problems in statistical physics. Work on
entire functions, partial fractions and the Okada conejcture
should develop methods with substantial applications beyond the
current focus. Section 6, the final section, concerns the
intersection of research with efforts to improve teacher education.
The theory of compositions (ordered partitions) could well
play a useful auxiliary role in primary and secondary
education.